Bioreactor Design for Ex Vivo Expansion of Hematopoietic Cells

9410751 Miller This project is on research to develop improved bioreactors for hematopoietic cell culture. This will involve an examination of how flow patterns and transport characteristics within perfused flat-bed reactors influence cell metabolic requirements. The four specific objectives of this research are: (1) to characterize the metabolic requirements of hematopoietic cells; (2) to enhance the productivity of current bioreactors by improving the design for enhanced transport, cell seeding, and cell feeding rate; (3) to evaluate alternative bioreactor designs, including stirred cultures and hollow fiber cultures; and (4) to scale up the most promising system for clinical trails. ***